Computer and Information Science and Engineering Research Instrumentation

Two SUN 3/260 workstations and a SUN 3/160 file server will be provided for researchers at Oregon State Univ in the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Design Histories as an Aid to Redesign in Mechanical Engineering, Learning by Experimentation, Combining Logic Programming an Assumption-Based Truth Maintenance, Combining Symbolic and Numeric Approaches to Uncertainty Management and Problem-Solving with Multiple Qualitative Models.